EARS: Enhancing Spectrum Efficiency of Autonomous and Agile Hybrid FSO/RF Systems

The objective of this project is to develop a highly
bandwidth-efficient and autonomous hybrid free-space optical/radio
frequency (FSO/RF) system based on several innovative and agile
technologies in forward error correction (FEC) coding, modulation, and
switching.

Intellectual Merit: The intellectual merit lies in the development of
a solid construction for super fast, highly practical, and highly
spectrum efficient dual-pulse pulse position modulation (D-PPM); the
proposition of a novel iterative decoding/demodulation method that can
effectively explore D-PPM with powerful rate-compatible FEC codes to
achieve adaptive coding and modulation; and the design of autonomous
and agile monitoring and switching technologies. The research entails
theoretic, algorithmic, and simulation activities, that will combine
the various aspects of information and communication, signal
processing, networking, and optics into a cohesive framework of
autonomous and agile FSO/RF systems.

Broader Impacts: RF spectrum is a precious commodity that is rapidly
becoming scarce, and FSO presents an effective alternative to the
overcrowding RF spectrum. FSO offers many unique advantages including
unlicensed access to high bandwidth, interference-free and
electromagnetic pollution-free, high data rates, high security, and
easiness to set-up, tear-down and re-configure. With the backup RF to
provide a carrier grade availability, and with effective
communication, signal-processing and optical technologies to further
enhance its bandwidth-/power-efficiency and robustness, hybrid FSO/RF
has the potential to provide applications in a wide range of vertical
markets, from finance to healthcare, government, military, education,
and enterprise connectivity.